REU Site: Oceanography & Oceanographic Engineering at Woods Hole Oceanographic Institution

Abstract: 0353767
This award provides funding for a Research Experience for Undergraduates (REU) Site program in oceanography at Woods Hole Oceanographic Institution (WHOI), located in Woods Hole, MA. The program will support ten to thirteen students during a twelve-week summer research program each summer. The budget includes support for student stipends, housing, travel and some research expenses. Funds for this program will be matched from various sources allowing WHOI to offer fellowships to a total of twenty to twenty-five students each year. The program will include independent research projects by the students, participation in a lecture series, and field trips. It will conclude with student oral presentations and written reports. Students will be encouraged to publish in peer-reviewed journals and participate in national conferences following the summer research program.